Gravity Waves and Binary Neutron Star Hydrodynamics

This proposal shall study gravity waves from binary neutron stars near coalescence. We will solve the relativistic hydrodynamic and field equations in three spatial dimensions employing both a conformally flat condition on the metric and in the post-Newtonian approximation. The gravity-wave signal will be extracted via a multipole expansion including up to l = 4 the mass moment and l = 3 in the current moments as well as the leading slow-motion correction. By applying both numerical schemes we expect to gain better intuitive insight into the relevant physical processes as the stars approach and the effect of these processes on the emergent gravity-wave signal. An important feature of the proposed calculations is the use of a realistic neutron star equation of state which reproduces available constraints and is amenable to a study of parameter sensitivity. From these studies we expect to obtain illustrative profiles of the gravity wave forms during final orbits of a neutron star- binary as a function of mass, spin, mass asymmetry and the neutron star equation of state. We will also study compression and shock heating effects as the stars approach coalescence and the effects of the linear and angular momentum loss from radiated neutrinos on the emitted gravity waves. The coupling between the gravity wave signal and a possible electromagnetic burst can also be analyzed.